RIA: Algebro-Topological Methods for the Formulation and Numerical Solution of Three Dimensional Magnetoquasistatic Problems

The use of differential forms and algebraic topology have become indispensible in theoretical physics. Application of this mathematical formalism to boundary value problems of Maxwell's equations results in a clear articulation of topolocial problems in engineering electronmagnetics and gives general relationships between vector fields and lumped parameters. The calculation of three dimensional electromagnetic fields on the largest of computers is a challenging research area which also benefits from this mathematical formalism. This research will extend the state of computational engineering in this area by investigating o the implementation of algorithms which automatically find "cuts" for magnetic scalar potentials in multiply connected current free regions; o the practical use of variational principles which yield first order Euler- Lagrange equations of the magnetic field, thereby avoiding the use of a vector potential; o the algebraic topology of "Heegard Splitting of three dimensional homology spheres" in order to develop algorithms for handling topological aspects of three dimensional eddy current problems where a magnetic scalar potential is used in current free regions.